Coalition for Science and Technology in a Knowledge-Based Economy; May 28-29, 1996; Sacramento, CA

9634635 Greenwood This award is for the partial support of a conference to be held in Sacramento, California on May 28-29, 1996. The conference will bring together representatives from business, local governments and universities to develop action plans for the future of science and technology in California based on model government/university/industry partnerships. The California economy, like that of the nation, has undergone a major transition in recent years. Large organizations relying on low wage labor have been replaced by small and medium sized companies relying on a workforce requiring continued education and training. In recognition of those changes, the document Science in the National Interest set as one of our nations goals the need to "stimulate partnerships that promote investments in fundamental science and engineering." California, because of it's large and diverse economy and its plethora of research universities, provides an ideal climate for developing such partnerships involving academic, industrial and economic development organizations. Furthermore, California particularly exemplifies the successful shift from Cold War military industries to new areas that utilize the skills of those workers, and the conference will include a discussion of successful models for that shift. This conference may act as a model that can be utilized by other regions of the country as our nation moves from a military economy to a civilian economy and as science and engineering are relied on more heavily to be the engines of economic development. ***